Low (Rationality) Game Theory Versus High: Experimental Investigation of Learning and Adaptive Behavior

The PI proposes to investigate learning and adaptive behavior in economic environments. In particular, the PI hopes to develop game theory in order to make it more descriptive of observed behavior. The PI has developed a model of reinforcement learning which explains and organizes previously-collected data from a variety of strategic environments. In addition, the PI has designed new experiments to test this model and to distinguish it from other models of economic behavior.